Research Initiation: VLSI Array System for Computational Geometry

The design and analysis of two-dimensional VLSI processor arrays to solve problems in computational geometry are being carried out. Computational geometry is concerned with finding efficient algorithmic solutions for computing geometric properties, such as the convex hull of a set of multidimensional points and various distance or intersection properties of a set of geometric objects. The goal of this research is to optimally map algorithms in computational geometry into two-dimensional VLSI processor arrays. Although efficient sequential algorithms exist, they are not suitable in real-time problems. The current VLSI technology provides a tool for implementing fast parallel algorithms for real-time applications. This research extends our current knowledge on mapping algorithms into VLSI processor arrays, which are mainly based on linear recurrences. The principal investigator is a new Ph.D. who already has significant progress in his research. The research focuses on important and timely topics. Support is highly recommended.